Mathematical Sciences: Special Functions

This project continues mathematical work into qualitative and quantitative properties of special functions. Although any class of functions can be termed special, those of interest are those that appear as the solutions of certain important problems. They arise as solutions of differential equations, matrix elements of representations of quantum groups, tools in the analysis of birth and death processes and as basic ingredients in approximation theory. Special functions have different forms. Among the earliest studied are those represented by series: polynomials for finite series and hypergeometric functions occurring as infinite series. Perhaps the most outstanding mathematical question of the day concerns the location of the roots of a particular special function, the Riemann zeta function. In addition, the work of one of the world's most remarkable mathematicians, Srinivasa Ramanujan, centered almost exclusively on special functions. Work will be done combining advanced techniques of computer graphics with past work on hypergeometric functions to seek out new and unexpected properties which have been missed. Some progress has been made in this direction through the observation that the maximum modulus of Legendre polynomials increases with the degree of the polynomial. Further work will concentrate on monotonicity properties of special functions as the degree or other parameters change. These properties suggest other applications such as area under curves and behavior of roots. One result of this type contributed the key to resolving the famous Bieberbach conjecture several years ago.